Lie Groups

9321285 Wolf Wolf will continue his research on Lie groups, harmonic analysis and representation theory, with applications to complex analysis, riemannian geometry, numerical analysis and control theory. He will continue his work on infinite dimensional Lie groups that are direct limits of finite dimensional groups, and will investigate questions in control theory that are essentially questions of representation theory. The theory of Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics. ***